I-Corps: Application of Local Wireless Tracking Technology to 3D User Interfaces

This I-Corps team has developed a wireless indoor tracking technology, and its unique properties will enable a plethora of new applications in many different areas including intelligent home automation, location based security, sports training, fine-grained indoor navigation, robotics, digital arts, education, entertainment systems, and body motion tracking for biomedical applications and film making.

The existing local wireless tracking techniques are computing and resource intensive, provide a limited tracking speed, and require a line-of-sight (LOS) channel for achieving a reasonable spatial resolution. The wireless tracking technique proposed is unique because of its non-line-of-sight (NLOS) capability, low power requirement, and excellent spatial and temporal resolutions make it an excellent candidate for an intuitive 3D man-machine interface in different applications including home automation, security, robotics and entertainment systems. Mobile smart devices penetrated the market largely because of their intuitive and easy-to-use 2D touch-screen interface; however, the industry is badly looking for an intuitive 3D user interface solution for maximizing user experience and market expansion. The proposed technology will provide a solution for a truly natural, intuitive, and immersive 3D user interface.